Texas Dinosaurs: How Do We Know? -- Regional Dissemination of Science Inquiry Exhibits and Educational Programs on Paleontology

9901967
DIFFILY

The Ft. Worth Museum of Science and History will develop "Texas Dinosaurs: How Do We Know? -- Regional Dissemination of Science Inquiry Exhibits and Educational Programs on Paleontology." This will be a major permanent and portable exhibition project that will be accompanied by an array of educational programs for formal and informal audiences throughout Texas. The permanent 12,000 sq. ft. exhibit, "Texas Dinosaurs: How Do We Know?", will recreate field and laboratory processes of paleontological research in an inquiry approach to public learning in geology, biology, ecology and mathematics. Portable versions of the exhibit will be distributed to the Dinosaur Valley State Park in Glen Rose, the Texas Parks and Wildlife Headquarters, the Panhandle-Plains Historical Museum in Canyon, the Science Spectrum in Lubbock, the McAllen International Museum, and the El Paso Insights Science Museum -- all in Texas. Regional dissemination of "How Do We Know?" exhibits and educational programs and materials will reach at least 1.5 million people annually, including isolated rural communities in the large geographic region of Texas.